TC-Small-Virtual Machine Introspection-based Live Forensics for Detection of Malicious Software

Modern malware is used extensively in computer crime and cyber-warfare
and poses a serious threat to the cyber-infrastructure of the United
States, at the military, civil, and corporate levels. Malware can
employ a number of techniques to gain access to needed resources and
to prevent detection, including hooking or modifying system calls,
adding new system calls, inserting new kernel modules, and directly
patching kernel code. Furthermore, malware is increasingly stealthy,
being both difficult to detect and to analyze, and current-generation
schemes for detection, analysis, and mitigation will become
increasingly ineffective as the trend toward additional stealth
increases, with more esoteric infection vectors, complex packing
schemes, polymorphism, and metamorphism being employed.

This proposal leverages emerging live digital forensics techniques, to
create powerful techniques for malware detection and mitigation. These
live forensics techniques deeply analyze memory dumps and build
accurate models of kernel and application structures that reflect the
state of the machine at the time of an investigation. By integrating
live forensics techniques into a virtual machine monitor (VMM) and
developing hardware-supported introspection techniques to analyze
system state, malware detection facilities can be created that prevent
malware from interfering with detection and mitigation strategies.
The proposal discusses a number of necessary tasks to support this
research agenda, including the design of and development of a
hardware-assisted VMM introspection architecture and deep, portable
modeling of kernel data structures and other guest VM state, including
the filesystem. These modeling techniques can then be used for
real-time verification of critical kernel code, cross-verification of
kernel structures, application state analysis, and protection of
critical system files. A novel aspect of the proposed research is the
use of commodity Graphics Processing Units (GPUs), protected by
hardware directed-I/O virtualization, as malware detection
accelerators.

The intellectual merit of the proposed research is to increase the
depth, flexibility, and capabilities of introspected live forensics
analysis and to expand the scope of live forensics to the detection of
sophisticated malware. The proposed techniques expand
state-of-the-art in live forensics techniques, virtual machine
introspection, and kernel-level malware detection and will provide a
foundation on which to build even more powerful techniques. The
broader impacts of the proposed work touch all sectors of society,
since individual citizens, as well as the law enforcement, military,
and corporate communities all benefit from the deployment of more
sophisticated malware detection mechanisms. The proposed work also
enhances the existing curriculum in information assurance at the
University of New Orleans, since research results from this effort
will be incorporated into both undergraduate and graduate courses,
exposing students to an important area of study in which the supply of
practitioners falls far short of the demand.

For further information see the project web site at the URL
http://www.cs.uno.edu/~golden/live-forensics.html.